Mathematical Sciences: 47th Session of the International Statistical Institute, Paris, France

This project is a Group Travel Grant for U. S. participants to attend the 47-th Session of the International Statistical Institute in Paris, France from August 29 - September 6, 1989. The American Statistical Association will establish a review and selection committee consisting of representatives of the American Statistical Association and the Institute of Mathematical Statistics. This committee will select the recipients for the travel awards. These recipients will be given partial travel support to help defray airfare costs only. It is expected that about 30 - 35 awards will be made. The International Statistical Institute in an international professional organization established in 1885. It is devoted to the development and improvement of statistical methods and their applications throughout the world.